Collaborative Research: EAGER: A LiP-MS consortium to create MisFold-DB and determine the sequence, structure, and evolutionary determinants of protein misfolding

Protein misfolding is a fundamental biological process that contributes to aging, neurodegenerative disorders, cancer, and many other diseases because proteins must fold into the correct three-dimensional structure to function properly. Despite decades of research, scientists still lack a standardized way to measure which proteins can spontaneously recover after unfolding and which ones become trapped in long-lived misfolded states. This project will establish the first community-standard platform for measuring protein refoldability across thousands of proteins and many different organisms, enabling researchers to better understand why proteins misfold and how cells maintain healthy proteomes. The resulting public MisFold database, standardized experimental protocols, quality-control metrics, and open computational workflows will provide foundational infrastructure for the broader scientific community. By combining advances in biotechnology, structural proteomics, data science, and interpretable machine learning, the project will accelerate biological discovery while training researchers at the intersection of experimental biology and computational science. The project also advances NSF priorities in biotechnology by creating enabling technologies for proteome-scale structural biology, Machine Learning and Artificial Intelligence by developing predictive models of protein misfolding from sequence and structure, and Gold Standard Science by emphasizing reproducibility, inter-laboratory benchmarking, standardized protocols, FAIR data practices, open resources, and transparent computational workflows. These outcomes will promote the progress of science while advancing national health, economic competitiveness, and the nation's biotechnology workforce.

This EAGER project will transform limited proteolysis-mass spectrometry (LiP-MS) from a specialized laboratory technique into a standardized, reproducible, multi-institutional platform for measuring intrinsic protein refoldability. Investigators at Penn State University, Johns Hopkins University, and the University of Rochester will first develop and benchmark a common LiP-MS workflow through cross-laboratory training, inter-instrument comparisons, and rigorous statistical analyses of experimental variability. The validated workflow will then be applied to bacterial species and eukaryotic cell lines to generate the first release of the MisFold Database (MisFold-DB), containing proteome-wide measurements of intrinsic misfolding propensity and structural perturbation locations for more than 10,000 proteins. Finally, the project will leverage these data to address fundamental questions regarding the sequence, structural, and evolutionary determinants of protein misfolding, including the roles of native protein entanglements, protein half-life, organismal growth rate, and lifespan. Interpretable machine learning models will be developed to predict which proteins are susceptible to persistent misfolding and where along their sequences misfolding occurs. The project will deliver standardized protocols, benchmarking datasets, statistical quality-control frameworks, FAIR-compliant databases, and predictive computational tools that establish a robust foundation for future research on protein folding, proteostasis, aging, disease, and protein engineering.